Dynamical Model of the Makassar Strait

0118200
Kamenkovich/ USM

It is proposed to study transport between the Pacific and Indian Oceans by assimilating current meter data collected in the Makassar Strait into a regional circulation model. Results of the model will be compared with observations of the distribution of chlorofluorocarbons in the waters of the region and with the trajectories of drifting floats. The goal is to develop a clearer picture of the regional circulation and its variability and to understand the mechanisms controlling the bifurcation of the flow leaving the Makassar Strait. The work will include an analysis of momentum and energy budgets and a study of the dependence of transport through the Makassar Strait on the pressure head. In addition to work with a numerical model in a realistic domain, the project will also include an idealized process study to examine the influence of different aspects of the regional topography on the flow bifurcation at the southern end of the Makassar Strait. By developing a better understanding of the nature of the regional circulation and of the mechanisms that control it, the project will contribute to an improved knowledge of the processes controlling the exchange of heat and fresh water between two major oceans.